Molecular Biological Techniques For An Introductory Course

The goal of this project is to modernize a large introductory course for majors by exposing the students to current molecular biological techniques and giving Honors students in the course the opportunity to do original research. Electrophoresis equipment will be utilized to carry out DNA restriction analysis to identify the culprit in a hypothetical murder; students work though the biological principles involved and see the application of these abstract ideas to a practical forensic situation. Fluorescence microscopes and microfuges are used in the Honors section to allow students to isolate and characterize a new gene in yeast, and thus experience firsthand the excitement of breaking new ground.